Enhancing Natural History Museum Visitor Understanding of Evolution: A National Conference

This award will support two years of work to plan and implement a national conference of approximately 30 participants representing the major research-based natural history museums in America to consider best practices for enhancing museum visitor understanding of evolution. Evolution is the central paradigm of the life sciences, and natural history museums are of fundamental importance to an understanding of the paradigm of evolution. Despite this fact, recent surveys indicate that the majority of the American public, including visitors to natural history museums, neither understands nor believes in evolutionary theory. The three-day conference to be held at the Florida Museum of Natural History in 2003 will be preceded by a pre-conference planning workshop in 2002 and a synthesis of literature and practices pertinent to the understanding of evolution in museums. The conference will bring together chief scientists, directors of education and exhibits, and directors of research and collections as participants in a program professionally facilitated by informal science education experts. Findings and outcomes of the conference will constitute 'best practices' for the field and will be published in the professional literature and disseminated via the Florida Museum website. With more than 10,000,000 visitors to natural history museums per year, once implemented in museum exhibitions and programs the results of this conference will have a broad impact on science literacy in America for years to come.